Analysis of Nearshore Turbulence Measurements: Stress and Dissipation Estimates, Momentum Balance, and Turbulent Energy Balance

Trowbridge An extensive, high-quality data set of turbulence measurements taken near the bottom in the shallow near-shore environment of Duck, NC. In this region, energetic currents are forced by both winds and breaking waves, and the motion of water and sand is of primary scientific interest and practical concern. This project will provide direct estimates of turbulent Reynolds shear stress and indirect estimates of dissipation rates for turbulent kinetic energy to test various models of the energy balance in the near-shore region.